1991 Fourth International Meeting on Ciliate Molecular Biology, June 9-13, 1991, Asilomar, California

A meeting "The Fourth International Meeting on Ciliate Molecular Biology" will be held June 9-13, 1991 in Asilomar, California. The meeting will bring together scientists of all ages and of many different interests who are using ciliates as experimental organisms. Many of these scientists would not usually attend the same meetings and in the encouraging environment of Asilomar, will interact and discuss problems of comment interest.***//